RIMI: Enhancement of Minority Education: Establishment of a Modern Research/Resource Electron Microscopy Facility

9353309 Henry The establishment of a multi-user, transmission electron microscope facility is requested for the departments of biology, chemistry and physics. The electron microscope facility will replace a dated instrument of twenty years and will enhance the current research efforts in the structure/budding of pathogenic spordia and the microstructural characterization of superconducting materials. The mutant spordia infects barley, which has an important nutritional value for humans and animals, and also is reputedly an opportunistic agent in human AIDS. For the superconducting materials, the electron microscope will be used to characterize at the micron regime superconductive materials whose electronic properties are affected by the substructure during processing. ***